Engineering Research Equipment Grant for Temperature Programmed Desorption Studies

This is an award to assist in the purchase of equipment to simultaneously obtain temperature-programmed desorption and thermogravimetric analysis data. This equipment will be used to study industrially important zeolite catalysts.